Algorithms and Numerical Analysis for Partial Differential Equations

Wahlbin
Lars Wahlbin and Alfred Schatz first continue their study of
asymptotically exact a posteriori error estimators for the
pointwise error in approximating the gradient on each simplex by
the finite element method. The problems they consider involve
solutions with singularities that pose new difficulties. What
makes these problems difficult is that one wants totally local
information about errors when, in fact, the solution and its
approximation are globally influenced in particular by the
singularities. The investigators also look into a priori error
estimates for second order elliptic partial differential
equations with discontinuous coefficients on nonconvex polygonal
domains, allowing meshes that are highly refined. The estimates
under consideration justify the use of refined grids in a variety
of highly singular problems. Because most refined grids are
constructed using self-adaptive codes that may have different
methods of choosing a grid, no a priori assumption is made about
the distribution of the mesh. The work described above is carried
out under the assumption that meshes are shape-regular, but
basically nothing else is assumed concerning the meshes. If some
further local structure is placed on the mesh (so-called one plus
alpha regular meshes), then a limited amount of superconvergence
may occur (as shown by Xu and Zhang in a particular situation).
The investigators, together with Zhang, apply this idea in
greater generality, namely to meshes that are perturbations of
those symmetric with respect to a point. The symmetry theory
predicts superconvergent points in many practical situations and
it is important to determine how this stands up under
perturbations. If even more structure is given to the mesh,
namely, that it is translation invariant, difference quotients
may be used for approximating derivatives. The investigators
construct new compact forms of such difference quotients.
Finally, the investigators consider finite element methods for
visco-elastic problems.
The investigators look into basic properties of the finite
element approximation method, widely used in engineering and
science practice, in industry, in research laboratories as well
as in academia. The finite element method builds an approximation
to the solution of a differential equation on a region by
breaking the region into smaller pieces and approximating the
solution on each separate piece, say as a combination of
functions that is easy to compute. Pasting together the separate
approximations gives a global approximation to the solution. The
method has its roots in the airplane industry and started to be
used in all branches of science and engineering in tne 1960's.
Well over a hundred thousand articles have been written on this
method. The investigators' aim in pursuing the fundamental
behavior of this method is two-fold: to get a deeper
understanding for what the method does, as currently practiced,
and to use this understanding to develop new and better methods.
A particular aspect that the investigators consider is that of
reliably gauging how well the computer method approximates the
underlying engineering or scientific model, whose exact solution
is of course unknown.